Theoretical and Numerical Investigation of Dynamical Systems Method for Solving Linear and Nonlinear Ill-Posed Problems

Smirnova
0207050
The investigator and her colleague aim to develop
theoretically a novel method, the DSM-dynamical system method,
for solving a wide variety of linear and nonlinear ill-posed
problems, to implement algorithms based on this method, and to
demonstrate the advantages of this method in efficiency and
accuracy. The DSM method is used as a general approach to the
construction of regularizing algorithms for solving ill-posed
problems, i.e. a stopping rule is developed: a rule for choosing
that moment of time at which the value of the solution to the
basic evolution equation stably approximates the solution to the
original ill-posed equation in the case when the data are given
with some error. Applications of different versions of the DSM
are considered to classical ill-posed problems of computational
mathematics, such as stable differentiation of noisy data, stable
inversion of ill-conditioned matrices, and to nonlinear inverse
problems arising in geophysics, quantum physics, medicine, remote
sensing in technology, and other applied areas. The DSM with
simultaneous updates of the inverse derivative operator without
actual inverting of this operator is developed for solving
nonlinear ill-posed problems. The DSM is used as a general method
for constructing convergent iterative processes for solving
ill-posed operator equations. Namely, convergent discretization
schemes for solving the basic evolution equation of the DSM
provide convergent iterative methods for solving the original
equation. The DSM is developed for unbounded operators, which do
not have continuous inverse operators, and also for a nonlinear
operators whose derivative is a Fredholm operator with nontrivial
null-space.
The area of ill-posed (unstable) problems is extremely
difficult, because solutions to ill-posed problems are very
sensitive to small variation in input data. For that reason
ill-posed problems cannot be solved by classical methods: the
corresponding numerical procedures for them turn out to be
divergent. However, ill-posed problems are frequently encountered
in many branches of natural sciences and engineering:
astrophysics, geophysics, spectroscopy, plasma diagnostics,
computerized tomography, antenna design, optimal design of
technical systems and engineering constructions, optimal
planning, optimal control over various processes, and many other
fields. Mathematical statements of these problems are given in
the form of operator equations of the first kind, problems of
functional minimization, problems of determining values of
unbounded operators, variational inequalities, and so on. The
project develops computational methods that provide more accurate
solutions to a wide range of ill-posed problems. The investigator
also uses the results in the graduate courses on ill-posed and
inverse problems she teaches at Georgia State University.
Finally, because ill-posed problems are of basic importance in
applications, the results are of wide use in engineering and
applied sciences.